Fundamentals of Quantum Materials Winter School and Workshop

This award supports the 2023 Fundamentals of Quantum Materials (FQM) Winter School and Workshop at the University of Maryland. This meeting is dedicated specifically to the synthesis, characterization and electronic modelling of quantum materials.